Reprocessing and Interpretation of Reflection Seismic Data from a Reactivated Rift in the Andean Foreland in Northwestern Argentina

This research is to study the Andean foreland of northwestern Argentina by means of reprocessing and interpretation of reflection seismic data collected by the State Oil Company (YPF) of Argentina. The reprocessing will improve the quality of the reflection data at depths below those of primary interest in routine industry work. These results will be combined with earthquake studies done using a portable seismic network installed for 9 months by Memphis State University. The study is currently in a compressional regime that has reactivated preexisting faults formed in extension. The combination of the two data sets will bear on the understanding of tectonics of the Andean foreland, mountain building and earthquake hazard of the region. This research is a component of the National Earthquake Hazard Reduction Program.